Support Services Related to NSF Program Solicitation, NSF 98-103, "Faculty Early Career Development (CAREER)" Program.

To provide for support services related to NSF Program Solicitation, NSF 98-103, "Faculty Early Career Development (CAREER)" Program.